Student Travel Sponsorship for the IEEE/ACM International Symposium on Networks-on-Chip 2015

The International Symposium on Networks-on-Chip (NOCS) is the premier event dedicated to
interdisciplinary research on on-chip, chip-scale, and multichip package scale communication technology,
architecture, design methods, applications and systems. NOCS brings together scientists and engineers
working on NoC innovations and applications from inter-related research communities, including
computer architecture, networking, circuits and systems, packaging, embedded systems, and design
automation. NOCS has established itself as the premier conference in this area. With these funds from this student
travel grant, the conference organizers will be able to
provide 10-15 travel grants to students, who may otherwise not be able to attend NOCS and take
advantage of the available learning opportunities in this evolving research area. The grant recipients will
be expected to report their learning experiences once the conference is over.
Special efforts will be made by personal contacts to recruit student participants who are underrepresented
minorities (i.e., African-Americans, Hispanics, Native Americans, and Native Pacific Islanders) and/or
women, coming from diverse institutions.